GK-12 Engineering Fellows: A K-12 Resource for Integrating Engineering, Math and Science

This program, a project of the College of Engineering with collaborative support from the Department of Education at Tufts University and the Nashoba Regional School District, is infusing the K-10 curriculum with engineering approaches and activities that are aligned with the new Massachusetts Science and Technology/Engineering Standards by placing engineering and computer science students (fellows) in the classrooms. Using their backgrounds, and equipped with a set of hands-on engineering-based project ideas and pedagogy know-how, the fellows are working with teacher liaisons to introduce engineering principles into the K-10 grades. The material being introduced conforms with the recently developed Massachusetts Standards for Science and Technology/Engineering and National Standards of Technology and Science. This material is being collected and created by an experienced team of Tufts faculty, K-12 professionals and graduate students. This is the first systemic and formal attempt to introduce engineering throughout the K-10 student experiences, with special emphasis on middle school. As a by-product, it is expected that this program will lead to new and productive collaborations between engineers and mathematical scientists, educators, and education researchers, and create a model program for engineering education in K-12 environments.